International Conference on Gap Junctions, to be held in Pacific Grove, California on June 9-13, 1991

This is a Conference grant award to provide partial travel assistance for five postdoctoral fellows and graduate students to attend the International Meeting on Gap Junctions, to be held on June 9-13, 1991 at Asilomar Conference Center, Pacific Grove, California. This will be the fourth in a series of major comprehensive meetings on gap junctions to be held since 1984, and the most recent since 1989. The field of gap junctions has expanded enormously in the past two years, and therefore this meeting is timely and important.